Acquisition of an Electrochemical Scanning Tunneling Microscope

Funds are provided for the purchase of a scanning tunneling microscope (STM) with electrochemical STM and atomic force microscopic (AFM) capabilities. The primary use of the instrument will be for STM and AFM measurements at semiconductor/liquid interfaces, although other groups at the University will use the AFM for topological characterization of nanostructured materials such as nanoclusters. Scanning tunneling microscopy at metal/liquid interfaces has resulted in significant advances in the understanding of surfaces in processes ranging from electrodeposition to catalysis. In contrast, very little attention has been given to semiconductor/liquid junctions. In this work, the semiconductor/electrolyte interface will be used as a means to both characterize and modify silicon surfaces. The ability to resolve and manipulate semiconductor surfaces on an atomistic scale offers a number of unique opportunities for both the fundamental study of semiconductor surfaces and for surface processing and microfabrication at atmospheric pressure and ambient temperatures. Specific areas of fundamental interest include: characterization of the surface structure of chemically etched silicon surfaces in an electrolyte, the chemistry of hydrogen passivation layers, and the initiation of porous layers in silicon. Areas of technological interest include: in situ microfabrication at the silicon/liquid interface and electrochemical deposition of epitaxial layers onto semiconductor surfaces. This work will complement existing work at the University on silicon surfaces supported by NSF. The instrument will provide unique measurement capabilities previously unavailable to the investigators involved in the above projects.